Research Participation in 10th International Conference on Wind Engineering

This award is to provide travel support to the 10th International Conference on Wind Engineering for several U.S. participants. The conference will be held in Copenhagen, Denmark during June 21-24, 1999. Interaction by U.S. delegates with international researchers and practitioners in wind engineering will provide the opportunity to present research and development in the U.S. to the world community. The American Association for Wind Engineering will play a major role in administering this project.